Lanthanide Optical Spectroscopy

This proposal on "A Study of Atmospheric Fronts Over Mountainous Terrain" between Dr. William Blumen of the University of Colorado and Professors ZHAO Ming and WU Rongsheng of Nanjing University is jointly sponsored by NSF and the Chinese State Educational Commission (SEDC). The investigators propose to study physical processes that affect atmospheric frontal motions over the earth's orography, specifically the mountainous regions of China. They will emphasize the role of the planetary boundary layer in this process. The investigations will consist of 1) observational and analysis study to document and examine various cases of frontal distortion by orography; 2) a numerical modelling effort to simulate frontal motion over terrain features such as the Tien Shan complex in western China; and 3) a theoretical study to examine the relation between frontal motion and planetary boundary processes. The investigators will carry out the first two phases at Nanjing University, where the data, analysis procedures and numerical model resources are. The Chinese investigators will plan and execute these aspects of the research in consultation with the American investigator. The theoretical phases, including analysis of the numerical experiments, will be carried out jointly through visits. Scientists do not completely understand the physical processes that affect frontal passage over mountainous terrain, complicating numerical weather prediction. The grid resolution and model physics may be insufficient to depict fronts adequately and, therefore, meteorological predictions in the vicinity of large mountain complexes are generally less reliable than elsewhere. The proposed research is of mutual interest to both the Chinese and American investigators. The particular emphasis placed on orographic effects in China will expose Western scientists to meteorological observations that have not been readily accessible, and the sharing of resources contributes to the research program.